SBIR Phase I: High Throughput Automated Testing Apparatus for Catalyst Screening

*** 9760492 Wickman This Small Business Innovation Research (SBIR) Phase I project will develop a high-throughput automated system for catalyst testing. Catalyst development is currently limited by the high labor costs in evaluating new catalysts. With older, manual equipment, testing one catalyst could easily cost several thousand dollars. Using microcomputer-controlled catalyst testing apparatus capable of continuous, unattended operation, cost can be reduced to several hundred dollars per catalyst. The new concept of high-throughput catalyst testing may lower the unit cost of testing to less than ten dollars. Phase I will develop a system for the simultaneous testing of an array of catalysts. In Phase II will prepare and test a 10 by 10 array system of larger. A high-throughput catalyst testing system is expected to find immediate application by catalyst manufacturers, major refineries, and other industries that use catalysts in manufacturing or processing. ***